RUI: Problems in Stochastic Geometry

The investigator plans to study three problems in the area of stochastic
differential geometry. The first problem concerns the Gauss-Bonnet-Chern
theorem. The investigator has proved a generalization of this theorem valid
for an oriented even-dimensional Riemannian vector bundle over a closed
compact manifold, equipped with a metric connection. The investigator would
like to simplify his proof, replacing the use of the Splitting Principle,
which constitutes a key step in his argument, with a more elementary and
transparent stochastic argument. The second problem concerns the derivation
of integration by parts formulae for the law of a diffusion process on a
compact manifold. The investigator has recently found a new method for
obtaining integration by parts formulae in the case where the diffusion is
strictly elliptic. He plans to use his method to study the analogous problem
for degenerate (non-elliptic) diffusions. He believes he will be able to
prove a dichotomy theorem giving conditions very close to necessary and
sufficient for the existence of integration by parts formulae, for a large
class of vector fields in the degenerate case. In the third problem, the
investigator in collaboration with Elton Hsu, will use ideas in two papers
of Hsu to give a simplified stochastic proof of the Gauss-Bonnet-Chern
theorem for manifolds with boundary. They will use the expertise they gain
from this work to study the index theorem for the Dirac operator on spin
manifolds with boundary.
The proposal combines two areas of mathematics, stochastic analysis, the
study of randomness, and differential geometry, the study of shape. Both
areas have close connections with the physical world. For example,
stochastic differential equations, a central theme of the proposal, are
widely used to model physical systems subject to the influence of random
noise. Examples include the flow of heat in a material, weather systems,
the trajectory of a spacecraft, and the pricing of stock options. Curved
spaces are often the natural setting for these phenomena, e.g. if one wishes
to study the heat at various points on a cylindrical pipe. A deeper
understanding of the mathematics underlying physical systems is often
crucial in developing good mathematical models of these systems. Thus,
although it is of a theoretical nature, the research outlined in this
proposal may prove useful in many areas of applied science and technology.